Development of Gas Chromatography-Mass Spectrometry Analytical Capability

Elmira College is their science departments with a Gas Chromatograph-Mass Spectrometer. The instruments expands the separative and analytical capabilities of the Division of Natural Sciences enhancing courses in Organic, Environmental, Instrumental Chemistry as well as those in Oenology, Forensics